An Interactive Video Project to Enhance the Value of Educational Television

Dr. Lenore Blum and associates at Mills College plan to explore the use of an interactive videodisc environment for elementary education in mathematics using existing materials from SQUARE ONE TV. The project will use a prototype interactive computer learning system that uses icons embedded within an exploratory environment to allow learners to select their own activities. The system allows videodisc materials to be easily combined within an interactive computer environment and includes browsing, lesson selection, open exploration, practice problems, and extended activities keyed to the SQUARE ONE TV material. They will produce a videodisc with source materials provided by Children's Television Workshop, design the interactive environment, and evaluate its effectiveness with trial groups of teachers, students, and others in formal and informal settings. This modest proposal will extend the range of utilization of SQUARE ONE TV and provide valuable information on its potential use in non-broadcast settings.